Polysilanes with Side Functional Groups

9307217 Matyjaszewski The aim of this research project is to continue synthesis and basic characterization of polysilanes with functional groups, based on the dearylation reaction discovered for oligosilanes in our laboratories. This technique was extended to polysilanes with phenyl groups to form partially triflated poly(methylphenylsilylene). The backbone with electrophilic sites is used for the attachment of various functional groups as well as to perform grafting. In order to enhance stability of polysilanes with side functional groups, a new technique based on the connection of the electrophilic reactive site (alkyl triflate) via a trimethylene spacer will be used. This method will increase stability of new polymers although it will limit electronic effects due to the insulating character of the alkane chain separating electronically active groups from the delocalized polysilane backbone. Additionally, ring-opening polymerization of strained cyclotetrasilanes with functional groups will be explored. This method can provide control of configuration of substituents and also affect electronic properties. Thus, the project focuses on preparation and characterization (NMR, GPC, viscometry, light scattering, UV, fluorescence, DSC, TGA, X-ray, electron microscopy, electron diffraction) of polysilanes with new functional groups as well as corresponding block and graft copolymers. Polysilanes are new advanced materials with interesting properties which lead to applications in electronics, optics, and ceramics. Additional applications are possible when materials with more diversified structure will be available. Nearly all known polysilanes contain only alkyl and aryl substituents, but this research aims to prepare new types of these materials. ***